Young Scholars Project

The Northeastern University, in cooperation with its College of Engineering and the Center for Electromagnetics Research, will initiate a six-week, commuter Young Scholars project in Engineering for 32 students entering grades 11,12. The program offers direct and sustained exposure to the challenges of engineering through laboratory research experiences, seminars, classwork, career exploration and field trips.